Enhanced Microbe Removal in Granular Media using an Attachment Mediating Polymer

0604566
Weber-Shirk
The project involves the study of attachment mediating polymer (AMP) to increase the efficiency of slow sand filters in the removal of microorganisms from drinking water. The work would aid in understanding the physical-chemical-biologically-mediated removal of particles in filter media and the engineering of slow sand filtration modules. Additionally, the work could contribute to the understanding the role of AMP in carbon and other nutrient cycling in surface waters. The PI is experienced in this field and has a well-equipped laboratory to perform the proposed tasks. Slow sand filters are used extensively in many parts of the world, and improvements in their performance, particularly with respect to the removal of bacteria, could have significant health effects. Successful outcomes from this project could be implemented in practical applications through existing collaborative arrangements with Engineers for a Sustainable World and the Brazilian organization Aqua Para el Pueblo.